EMSW21: RTG: Mathematical and Computational Biofluids

Fluid dynamics has historically been a driving force in applied mathematics and scientific computing.
In biological settings, a level of complexity is added to traditional fluid dynamics since
typically biological flows are unsteady, involve active and elastic interfaces, fluid-structure interactions
and transport of chemical signals. This Research and Training project, led by faculty in the
Departments of Mathematics and Biomedical Engineering at Tulane University, recognizes the need
for students trained at the interface of mathematics and the biomedical sciences. Three graduate
students, six undergraduate students and two postdoctoral fellows will be supported each year. A
broad spectrum of research projects will be emphasized that span mathematical analysis, development
and analysis of numerical methods for partial differential equations, modeling of complex
biological systems, three-dimensional simulations on high-performance computers, and a two-way
coordination of modeling with experiments. Training activities will include a curriculum with core
courses from both the Department of Mathematics and the Department of Biomedical Engineering,
regular group meetings, a monthly Biofluids All-Hands meeting, a wet-lab and internship program
for graduate students and postdocs, professional development seminars, an annual Carnival Focus
Days (CFD) workshop and high-performance computing training activities. Moreover, undergraduate
students will be fully-integrated into research teams through academic year involvement and
intensive summer research.

Mathematics has had a huge impact on the engineering, biological and physical sciences through its development
of theoretical analyses and numerical methods. Biological fluid dynamics, in addition
to its direct applications in physiology and oceanography, provides a rich educational and training
platform for students in the mathematical sciences. Undergraduates, graduate students and postdoctoral
students will work in teams, with representation from both Mathematics and Biomedical
Engineering, and with an emphasis on the interplay between theory, computation and experiment.
Research projects will be motivated by applications, including microorganism motility, pulmonary
mechanics, biosensors and cellular biomechanics. All graduate and postdoctoral students will participate
in an internship, either at Tulane University or at a partner institution, where they can
work side-by-side with experimentalists, develop a comprehensive understanding of various aspects
of the research project, and participate in the life of a working fluids lab. The co-PIs, all co-founders
of Tulane's Center for Computational Science, have demonstrated commitment to this model of
training. They are, themselves, diverse, and have been actively involved in increasing the number
of US women and minorities in scientific research. This training program will attract diverse
American nationals into the mathematical sciences.